High Resolution Mg/Ca-based Sea Surface Temperature Records from Cariaco Basin Ocean Drilling Program Hole 1002C

The proposal is funded to reconstruct SSTs from ODP Hole 1002C in the Cariaco Basin Which has already yielded a number of important insights into climate variability because of =its location and the very high sedimentationrates and periodic lack of bioturbation. The PI will extend the present SST (alkenone based) which is now 0-24 ka to orbital time scale back to 450 kyrs ujsing primarily Mg/Ca SST proxies in the planktonic foraminifer G. rubber.